Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring for Dr. Rudy Henning

HRD 03-28625
Dr. Rudolf Henning is a professor of electrical engineering who has developed the "YES-We Care" program to interest, influence, and prepare minority pre-college students for success as engineering students. The program promotes innovative education and mentoring concepts and philosophy at the pre-college level (middle and high school). The 25-week long program includes Saturday morning enrichment sessions, academic reinforcement (engineering, mathematics, science, computers, and technology), and small group instruction and mentoring, all in a friendly, club-like atmosphere.

Henning's activities 'expanding the pool' of diversity began more than 20 years ago. His program includes a reward based system, and supports family participation (parents) in addition to students.